Direct Dating of Old Ice by Extraterrestrial Helium-3 and Atmospheric Beryllium-10 - A Proof of Concept

This Small Grant for Exploratory Research supports development of an innovative dating technique for application to ancient, relict ice bodies buried in the Western Dry Valleys of Antarctica. Dating of surrounding sediments and volcanic ashes indicates that these ice bodies may be up to six million years in age, offering the oldest direct atmospheric and climate records available. This SGER is a proof of concept to develop a new dating technique using beryllium (10Be) of cosmogenic origin from the atmosphere and extraterrestrial helium (3He) contained in interplanetary dust particles. Both tracers are deposited to the Earth's surface and likely incorporated into the ice matrix at constant rates. Radioactive decay of 10Be versus the stable extraterrestrial 3He signal may offer way to directly measure the age of the ice.

The broader impacts of this work are development of a new analytical technique that may improve society's understanding of the potential for global climate change from the perspective of the deep time record.